CAREER: New Measurements of Turbulent Fluxes in the Upper Ocean

This project aims to improve understanding of how small-scale turbulent fluxes in the upper ocean transfer momentum and kinetic energy across different layers of water. Direct measurements of these fluxes in the ocean are difficult to make and are thus rare. This project will fill in this observational gap by using recent advances in velocity measurement technology to observe fluctuations in velocity at the scales needed to calculate turbulent fluxes with the goal of using these estimates to tune and improve ocean models. Undergraduate and graduate students will gain valuable training by being involved in the field work and data interpretation. Course materials and software code developed as part of this project will all be open-source and publicly available.

For this project, moorings will be deployed off the Oregon Coast to better understand Reynolds stress resulting from turbulent momentum fluctuations in the ocean. A novel aspect of the project will be the development and testing of methods to estimate turbulent stress using high-resolution, pulse-coherent Acoustic Doppler Current Profilers (ADCPs), which will expand on existing methods that have been performed from fixed-frame deployments. A key innovation is the use of spatial methods rather than time-domain methods which tend to be confounded by platform motion. Thus, the work will allow for broader estimation of stress in the ocean from moving or rotating platforms. The estimates of turbulent stress will be used to evaluate momentum budgets in the mixed layer, to test surface boundary layer turbulence closure schemes, and to further understanding of how the mixed layer interacts with the deeper ocean below. The work will help improve parameterizations of turbulent mixing in ocean models.